High Speed Image Acquisition and Motion Analysis for Research and Educaiton

This equipment proposal consists of a high-speed image acquisition and analysis system. The equipment will support existing and future research and educational projects in the Department of Civil and Environmental Engineering and the Department of Mechanical and Aeronautical Engineering at Clarkson University.